Synthesis and Measurement of Hydroxy Carbonyl Products of Isoprene Oxidation in Air

The objective of this project is to study products of the atmospheric oxidation of isoprene, in particular, hydroxy carbonyl compounds. A method to quantify these compounds based on scrubbing, derivatization with PFBHA and BSTFA, and gas chromatography/ion trap mass spectrometery, will be further developed. For the purpose of preparing standards, a variety of compounds will be synthesized. The procedure will then be demonstrated for field measurements and deployed at field sites in Northern California